Multidimensional Wavelets in Non-Isotropic Function Spaces

This project investigates the areas of harmonic analysis and
wavelets concerning the mathematical theory of multi-
dimensional wavelet expansions. One of the fundamental
problems of the subject is how to construct higher dimensional
wavelet bases with desired characteristics, e.g., wavelets with
good time-frequency properties. These areas of research have
seen significant progress due to the contributions of I.
Daubechies, R. Coifman, and Y. Meyer, along with many others.
However, the majority of research has been concentrated on
isotropic theory, leaving many questions involving non-
isotropic wavelet theory unanswered. The proposer will
investigate this theory of non-isotropic wavelets from three
directions. The first is to study non-isotropic analogues of
the standard function spaces associated with expansive dilations.
In particular, to examine characterization by wavelet expansions
of Calderon-Zygmund operators associated with non-isotropic
dilations. The second is to construct orthogonal wavelets with
good time-frequency localization for large classes of non-
isotropic expansive dilations. The third is to identify non-
isotropic expansive dilations for which the construction of
well-localized wavelets is impossible.

More generally, this proposal represents work on wavelet
analysis which is a powerful technique in harmonic analysis.
This technique has produced wide-ranging applications to signal
and image processing, such as the JPEG 2000 image compression
system. It is expected that further research on multi-
dimensional non-isotropic wavelets will continue to produce many
other contributions in pure and applied mathematics.